General Chemistry: Discovery-Based Advances for the Two YearCollege Chemistry Curriculum

9354378 Sarquis Faculty at two two-year campuses are revising the General Chemistry course to make it more interesting, relevant, and accessible to students with various academic backgrounds. This effort includes the design, development, and testing of discovery-based laboratory scenarios and take-home lecture supplements that illustrate topics in Chemistry through activities beyond the classroom. In addition to demonstrating general concepts, the activities also involve students in critical-thinking and group problem-solving skills used by professional chemists in industry and academia. To further ensure success, the project is built on the pedagogical foundations of constructivism, Science-Technology-Society, and cooperative learning. Following pilot implementation and revision, these advances in the General Chemistry curriculum will provide a model for adaptation at other two-year colleges and small four-year schools. ***y